STTR Phase II: Dynamic Robust Hand Model for Gesture Intent Recognition

The broader impact/commercial potential of this project stems from addressing the
important hand gesture based input challenges of VR/AR (expected to grow to $150B by
2020), Robotics and IoT ($135B by 2019 and $1.7T by 2020 respectively). This technology,
if successful in mitigating the high technical risks, represents a huge leap in the state of the
art in 3D hand models for gesture recognition and has the potential to be the industry
standard for AR, VR, Robotics and IoT applications with broad societal impact in education,
medical and healthcare. Its broader impact is further amplified by the potential in serving the
needs of the disabled community in improving their quality of life by being better able to
communicate, learn and adapt to their interaction needs.

This Small Business Technology Transfer (STTR) Phase 2 project aims to significantly
advance current 3D hand gesture recognition technology by developing a dynamic hand
tracking model for gesture intent recognition. It is robust against occlusion and tolerant to
variations in camera orientation and position. This research will result in a transformative
leap above the current state of academic and commercial hand models and overcome key
technical hurdles that have so far proven difficult to overcome. It solves the following key
challenges and involves very high technical risks: 1) robust hand tracking while holding
objects and 2) robust tangible interactions using objects without using any fiducial markers
2) low profile hand wearable for touch interaction detection. This Phase 2 project will
achieve these objectives by 1) data acquisition and hand-object pose estimation, 2)
understanding user intents with enhanced tangible interactions, and 3) system validation
and user testing.